Microporous Solids from Bicontinuous Microemulsions

Microporous solids will be made by polymerizing one phase of bicontinuous microemulsions. Preliminary experiments show these solids can have surface areas over 1000 m2/g and can selectively adsorb heavy metals like copper. These high surface areas are to be obtained routinely with more crosslinking, polymerizable detergents, and altered detergent concentrations.